Dynamics of Elementary Processes in Solutions of Biopolymers

Dr. Schurr plans to study the rapid deformational Brownian motions of particular DNAs, DNA/Ligand complexes, and filamentous viruses by modern optical techniques, namely time- resolved fluorescence polarization anisotropy, transient photodichroism and dynamic light scattering. Most of the studies are focussed on studying the effects of temperature, salt concentrations and base composition on the dynamics of DNA in the presence of Small molecules that bind to DNA, e.g., ethidium chloroquine and methylene blue. Some specific examples of these studies are: 1) to assess the local motions of intercalated ethidium as a function of temperature and viscosity; 2) to investigate the relative populations of different kinds of dye binding sites as a function of temperature, salt concentration and base composition; 3) to determine whether the structural transition induced in DNA by chloroquine at low salt concentration is local or long-range and to study its dependence on salt concentration; 4) to construct DNAs that are oligomers of the wild-type and mutant operators, to measure their twisting and bending rigidities, and to examine the effect of saturation binding on their tertiary structure; 5) to examine the effect of crystallization solvent on the twisting and bending rigidities of DNA; and 6) to measure the dynamic bending rigidities of filamentous viruses with similar radii but different internal structures.